Lagrangian Dynamics and Thermodynamics of Cold Water Filaments in Tropical Instability Waves

In this project, the PI's will analyze data from the Tropical Instability Wave Experiment (TIWE) carried out near 140|W just north of the equator in 1990-1991. This proposal focuses on small scale structure derived from fast sampling of temperature, salinity, and velocity, along with small-scale arrays of surface drifters and ship-board air-sea flux measurements. This work will focus on the study of the local vorticity balance and heat flux associated with the mingling of waters across the TIW front.